RI: Small: Boosting, Optimality and Game Theory

Boosting is a machine-learning method based on combining many
carefully trained weak prediction rules into a single, highly accurate
classifier. Boosting has both a rich theory and a record of empirical
success, for instance, to face detection and spoken-dialogue systems.

The theory of boosting is broadly connected to other research fields,
but has only been fully developed for the simplest learning problems.
Nevertheless, in practice, boosting is commonly applied in settings
where the theory lags well behind. We do not know if such practical
methods are truly best possible; even for binary classification, it is
not clear how to best exploit what is known about how boosting
operates. New challenges will demand an even greater widening of the
foundations of boosting.

The goal of this project is to develop broad theoretical insights and
versatile algorithmic principles. The aim is to study
game-theoretically how to design the most efficient and effective
boosting algorithms possible.

Research on boosting is spread over many years. across multiple
publications and disciplines. To organize this body of work, a
significant activity of this project is the completion of a book on
boosting which will provide a valuable resource for students and
researchers of diverse backgrounds and interests.

Boosting has historically had a major impact on areas outside machine
learning, such as statistics, computer vision, and speech and language
processing. Thus, there is a strong potential for work at its
foundations to have a broad impact on these other research and
application areas as well.